Acoustical Rainfall Analysis: Long-Term In-Situ Measurements of Rainfall at Sea

Nystuen
9818726
Building on prior development and laboratory tests of acoustic rain
sensing technology, field-deployable acoustic rain gages will be
constructed and tested under operational conditions. The acoustic
gages will be mounted on two TAO moorings in the tropical Pacific.
Data from the acoustic instruments will be compared with data from
capacitance rain gages located on the same moorings and with rainfall
estimates deduced from satellite observations. The rainfall observations will be combined with upper ocean salinity measurements
from the moorings to examine the fresh water budget of the upper ocean.